Quantum and Classical Complexity of Multivariate Problems

Traub and Wozniakowski
The goal of information-based complexity is to create a
theory of computational complexity and optimal algorithms for
problems with partial, contaminated, and priced information, and
to apply the results to solving specific problems in varied
disciplines. For brevity, information-based complexity will be
called IBC. The theory is developed over abstract spaces,
typically Hilbert and Banach spaces, while the applications are
to multivariate problems. Because the information is partial and
contaminated, only approximate solutions can be obtained. IBC
studies computational complexity and optimal algorithms for
computing e-approximations in various settings. Because the
worst case setting often leads to negative results such as
unsolvability and intractability, settings with a weaker
assurance such as average, probabilistic, and randomized settings
are also studied. A fairly new area of IBC research is quantum
computing. The best known algorithms discovered to date, Shor and
Grover, are for discrete problems. But many problems occurring
in science and engineering are continuous. Examples include
high-dimensional and path integration, high-dimensional
approximation, and partial differential equations. To understand
the power of quantum computation for continuous problems one must
know the computational complexity of these problems on a
classical computer in various settings. This is exactly what has
been studied in IBC. Questions to be answered include: For what
problems is quantum computation (exponentially, polynomially)
faster than classical computation? For what problems is there
provably no speed-up of quantum over classical computation?
For some 40 years, computing has been driven by Moore's law,
which is the empirical observation that computing power doubles
about every 18 months. This has made it possible for people to
have computers in their homes as powerful as computers owned by
corporations just 20 years ago. It has made the internet
possible. Finally, powerful computers are indispensable to our
national security. Computer chips and wires are getting so small
that there is a consensus among technologists that Moore's law
will end in 10 to 15 years using current silicon technology.
Because it is critical for our country to maintain the Moore's
law trajectory, new ways to compute are being considered. One of
the most promising ideas is to use the principles of quantum
mechanics to do quantum computing. The investigators and their
colleagues are studying the following question: If physicists
and chemists succeed in building quantum computers, for which
problems are there big payoffs? That is, what are the killer
applications?